Northeast Ethics Education Partnership

The Northeast Ethics Education Partnership (NEEP) program, managed by Brown University's Center for Environmental Studies, provides training to graduate students in research ethics, cultural relativity, and community-based approaches. NEEP offers this training through semester-long courses and student/faculty mentoring, as well as through an extensive training database of slide presentations on 30 topics in research ethics, cultural competence and community-based research. Through this award, the project team is expanding NEEP training from its current partnership (Brown University and SUNY-ESF) to include Northeastern University and UMASS-Dartmouth. One goal of this expansion is to conduct short/long courses with their engineering schools, and environmental studies and marine science departments. National dissemination of the NEEP website training materials is being promoted and a research survey to identify research ethical/cultural relativity issues of concern in environmental field research is being conducted with environmental studies researchers, environmental anthropologists/sociologists and engineers. Ethics training is being provided to a diverse community of minority and underserved students and women scientists through the large, racially-diverse populations being served by UMASS and Northeastern University programs.